Stochastic Finite Element Methods

The objective of this research is to develop uncertainty-propagation procedures for general-purpose finite-element (FE) codes. The extended codes will contain several options, with the user being able to: specify which geometrical parameters, material properties, loads, and other relevant environmental conditions are uncertain; choose a probabilistic model for each random variable or random function; select the response variables (displacements, deformation, internal forces, etc.), the probability distribution of which is to be calculated; and control the method of uncertainty propagation. There will be also flexibility as to the representation of response uncertainty, e.g., second-moment versus full-distribution and total-uncertainty versus separation of uncertainty into contributions from different sources (loads, geometrical variables, etc.). Stochastic-analysis options will be implemented on the NONSAP-C code and illustrated through detailed study of one problem: creep and shrinkage deformation of prestressed segmental bridges as a function of time.